Aquisition of a Variable Pressure Scanning Electron Microscope for Interdisciplinary Research and Teaching

Summary
This award is to fund acquisition of a low vacuum scanning electron microscope (SEM), critical point drier, and sputter coater for research, student research training, and teaching on the campus of Valdosta State University. VSU does not have an SEM on campus and the nearest SEM available for use is 2 hours travel time away. There is a critical mass of faculty on campus who are experienced in SEM techniques and who will pursue research projects using scanning electron microscopy. The plan to acquire the JEOL 6460LV SEM requested will improve greatly the microscopy resources available for research and teaching, adding a significant technological improvement to facilities in the area of microscopy. The requested microscope will be housed in a microscopy facility that is maintained by the Biology Department and is accessible to other units in the College of Arts and Sciences. VSU is a primarily undergraduate university, and undergraduate students will be involved in all aspects of the research outlined in this proposal.